U.S.-China Cooperative Research (Geography): Data Acquisition and Research Agenda of Contemporary Urban China

This is a collaborative project between Mei.ling Hsu of the University of Minnesota and Chen Shupeng of the Institute of Geography, Chinese Academy of Sciences, Beijing. Professor Chen is Director of the Institute's Laboratory of Resources and Environment Information System (LREIS). The investigators will establish a Geographic Information System (GIS) for urban China and conduct research on the characteristics and functions of Chinese urban places, the process of urbanization, and the evolution of the Chinese urban system. The project is sponsored jointly by NSF and the Chinese Academy of Sciences. The research plan consists of the following tasks: (1) mapping contemporary urban China to obtain an overview of all urban places; (2) analyzing the spatial interaction between places in the Chinese the urban system; and (3) conducting two case studies in the Beijing.Tianjin.Tangshan economic development region and Shandong province that will focus on urban nodes and linkages, the city characteristics of today, and the changes since 1949. In China the research work will be conducted by the staff of the LREIS, who will design the geocoding system and the database structures of the GIS, digitize and input the locations of the urban places, and input the published data on town and city socioeconomic, land, and transportation systems. During the course of the project, Professor Chen will spend time at the University of Minnesota, participating in the data evaluation.